NSF Connections

General Atomics is establishing a connection to NSFNET via 56,000 bits per second lines for the San Diego Community College District. The District comprises three community colleges and eight continuing education centers. The connection enables the faculties and students to communicate and collaborate with the international scientific and educational community, and to access network resources such as libraries, databases and supercomputers. This award funds part of the costs for two years.